NSF/CBMS Regional Conference in the Mathematical Sciences-"Mathematical Epidemiology with Applications"-"July 18-22, 2011"

NSF/CBMS Regional Conference in the Mathematical Sciences-"Mathematical Epidemiology with Applications"-July 18-22, 2011

The criticality of mathematical tools applied to better understand transmission, spread and control of infectious diseases is assuming new importance, in light of recent epidemics, such as those caused by SARS and H1N1 viruses. Up-to-date epidemic analyses incorporate cultural, political, and social factors along side with international travel. The NSF-CBMS Regional Research Conference "Mathematical Epidemiology with Applications" will introduce a new generation of mathematical scientists to this exciting area, while setting in place collaborations and working groups that will generate much more research in the years to come.

The conference will feature ten keynote lectures by two leading experts in the field of mathematical epidemiology, Professor Fred Brauer of the University of British Columbia, and Professor Carlos Castillo-Chavez of Arizona State University.